Workstations for a Mathematics Laboratory to Implement a Technology Based Curriculum

The University of North Carolina in Charlotte is making the necessary changes in the calculus curriculum to take advantage of the newer curriculums as they mature and to better teach the concepts of mathematics with workstations to help reinforce the numerical and graphical part of mathematics. This project is using up-to-date computing equipment that will run the software that they have chosen to use in their mathematics curriculum. The College of Engineering has implemented a Sun workstation network for all of their students, and this project allows mathematics students to work with the same materials. They are running Maple and other visualization programs for many mathematics classes. This lets the department better serve the engineering, mathematics, and science students that they teach by offering them the same type of hardware that they use in their other courses.